Complex integral geometry

Abstract
Gindikin

The focus of the proposal is the development of a method of complex
horospheras for real affine symmetric spaces, including real semisimple
Lie groups. We anticipate to apply this method to the construction of the
models of series of representations and to the decomposition of the regular
representations on series on the language of Hardy spaces of
cohomology. As one of application we hope to give an integral geometrical proof of the product-formula for c-function of Harishi-Chandra. Another direction of my research is the investigation of geometrical and analytic properties of
the crowns of Riemann symmetric spaces - their canonical Stein
neighborhoods.

Integral geometry is a branch of geometrical analysis which
investigates integral transforms associated with different geometrical
structures. The principal challenge is to find a geometrical setting, more
general than the group one, where it is possible to develop a non-abelian
harmonic analysis. Another direction considers complex constructions
responsible for the geometry of real affine symmetric spaces. Such
phenomena have roots in classical geometry of Poncelet and Pluecker.